Chaos with Multiple Positive Lyapunov Exponents

9870183
Yorke

Chaotic dynamics has been a fertile area of mathematical research in
recent years, and chaos has now been observed in many scientific fields.
Much of the progress to date in the study of chaotic dynamics has focused
on low-dimensional systems, and many phenomena are well understood in
certain low-dimensional cases. Even when systems with higher-
dimensional state spaces are considered, often the dynamics takes place on
a low-dimensional attractor (by "low", we mean up to dimension 2 for
maps and 3 for flows). This proposal seeks to explore how some of the
phenomena associated with chaotic dynamical systems extend to cases
that are fundamentally higher-dimensional -- that is, when the system is
expanding in more than one dimension, or in other
words has more than one positive Lyapunov exponent.

Higher-dimensional chaos can occur in models of many engineering
devices and in meteorological models and climate models. This research
will tell us, for example, if mathematical models can suddenly get trapped
in artificial windows of regular behavior. These windows would be
artificial in that any realistic level of noise would disrupt the regular
behavior. Our research will also shed light on the reliability of computer
simulations for higher dimensional models. This study is critical to
realistic modeling of complex systems.